Biology Workbench: A web-based infrastructure for databases, tools and interfaces in biology

Abstract

0003231

Subramaniam, Shankar

University of California, San Diego

Biology Workbench; A web-based infrastructure for databases, tools and interfaces in Biology.

Project Abstract

This award focuses on the maintenance and enhancement of the Biology Workbench; an integrated set of tools for sequence analysis, originally created as part of the NPACI/NCSA project and recently relocated to UCSD. The project will add additional public domain tools and continue to serve a wide base of molecular biology researchers and educators as a single, integrated data retrieval and analysis resource.